SGER: Effects of Wildfires on Soil Methane Fluxes in Florida Pine Plantations

99-00711
Castro

Effects of wildfires on soil methane fluxes in Florida pine plantations

Southern pine plantations account for more than half of the total commercial timberland in the United States (76 million hectares). Despite their importance, we do not know how natural disturbances affect greenhouse gas emissions from soils in these pine plantations. The recent outbreak of natural wildfires in Florida provides a unique opportunity to examine their impact on soil methane emissions. The investigators will test the hypothesis that wildfires change the direction of the soil methane flux; from sinks in unburned plantations to sources in burned plantations. To test this hypothesis the researchers will: (1) make intensive field measurements of soil methane fluxes in burned and unburned plantations, (2) identify factors controlling the wildfire-induced changes in the direction of the soil methane flux and (3) examine the interaction between climate and methane fluxes. Results will be used to make a preliminary assessment of the importance of wildfires on soil methane fluxes.